World Congress of Science Producers Conference, November 20-24, 1998, Boston, Massachusetts

9815232
Apsell

The World Congress of Science Producers is an annual event of leading broadcasters and independent science producers from around the world. This year's congress is being planned and osted by WGBH. For this Congress, WBGH will add two new dimensions to the meeting: 1) involve working scientists in the meeting to increase the dialogue and contact between broadcast journalists and scientists, and 2) partially support attendance by individuals who are either are considering entering science journalism or are newly involved in the field. Sessions that include scientists include: an exploration of the most important science stories that journalists should be covering, an in-depth analysis of a specific science issue, a discussion of ethical issues related to genome research, legal issues related to science in the courts, an examination of coverage of science vs. pseudo-science, and visualization of science.